Archaeological Perspectives on the Origins of the Siberian Late Paleolithic

This doctoral dissertation research project is a comparative study of archaeological assemblages from 30 Middle and Early Paleolithic sites in Siberia dating between 50,000 and 20,000 years ago. These sites are essential to an understanding of the origins, adaptations and dispersal of modern humans in Eurasia. This material is also central to an understanding of the origins of culture in the New World. Combined with a re-evaluation of geomorphic and stratigraphic contexts of sites, organic samples will be collected for radiocarbon datings using accelerator mass spectrometry. Against this chronological background, lithic artifacts from Siberian sites will be reexamined and analyzed.